Marcel Grossman Meeting Travel Funds

This award will enable 25 U.S. scientists to attend MG X (the 10th Marcel Grossmann Meeting on Recent Developments in Theoretical and Experimental General Relativity, Gravitation, and Relativistic Field Theories). The travel funds will allow U.S. researchers, in particular young researchers, to present their work at the international meeting and learn of new results.